Bad Reduction of Curves and Abelian Varieties

One of the main problem in arithmetic geometry is the determination of the set
of rational solutions of a system of polynomial equations with rational
coefficients. One of the most successful technique in the study of such a set
of solutions is to reduce the equations modulo a prime p and to study first the
set of solutions of the latter system of equations. It turns out that in many
situations, it is possible to describe a canonical way of reducing the
equations modulo p. For instance, the canonical reduction of an abelian
variety is called its Neron model, and is the object of study in Lorenzini's
first research project. The canonical reduction of a curve is called its
regular minimal model, and is the object of study in Lorenzini's second
research project. For all but finitely many prime p, the canonical reduction
is `good' and, as the name suggests, such a reduction type can be better
understood than the reduction at the finitely many remaining primes. Our
present understanding of the information encoded in the canonical reductions
that are not good (and not semistable) is far from complete. Some very
difficult problems arise when studying reductions modulo small primes. One
such difficulty can be stated as follows. A famous theorem due to Grothendieck
and others states that there exists a finite field extension L/K such that
the reduction of the initial equations viewed as equations over L is either
good or semistable. In other words, it is possible to improve the reduction
by extending the initial field. When p is large, the extension L/K is totally
understood once its degree is known: it is the unique cyclic extension of that
degree. When p is small and divides the degree of L/K, there are infinitely
many extensions of that given degree, and almost nothing is known about the
specific extension L/K needed to improve the reduction of the initial
equations. Lorenzini's proposed research will shed more light on this
and other special phenomena that arise when the reduction modulo a small
prime p is not `good'.

For centuries, human beings have been fascinated with solving diophantine
equations, named after the Greek mathematician Diophantus who lived in
the third century AD. The field of diophantine equations has taken on
added significance in the modern world as it finds applications in a
variety of areas including, for example, encryption. A diophantine equation
is a mathematical expression in several variables, say x and y. The central
problem in the field is to find all possible solutions where x and y
are both whole numbers or both fractions. For instance, the equation xy-10=0
has many solutions (e.g., x = y = square root of 10) but the solutions in
whole positive numbers are in this case the divisors of 10, namely
(x,y) = (1,10), (2,5), (5,2), and (10,1). While such an equation is very
simple, a slight modification, such as replacing 10 by a very large number
(for instance, one having 150 digits) renders the new equation extremely hard
to solve in practice. It is this fact, that it is so hard to solve such
equations, that is the key to many of the safest current military codes and
data encryption systems. The complexity of the determination of all solutions
in whole numbers or fractions of an equation increases with the power at which
the variables appear in the equation. For instance, the equation `x to the
power n plus y to the power n equals 1' was conjectured in the 17th century
to have only two solutions when n is any odd number greater than 1.
(Those two solutions are (x,y)=(1,0) and (x,y)= (0,1). This conjecture
is called Fermat's Last Theorem and was proved only in 1994. Since the time
of the Greeks, mathematicians have developed sophisticated tools to aid in
solving equations. This investigator has developed some such mathematical
tools and is currently working on further contributions to this field.